CAA: Acquiring Techniques for Correlating Physiological Characteristics of Ion Channels with Their Molecular Structure

9408133 Ono ABSTRACT Various types of voltage-gated potassium channels determine the pattern of electrical excitability in nerve cells. In the developing mouse hippocampus, a part of the brain implicated in learning and memory, the appearance of specific potassium currents of nerve cells in culture has been shown to be controlled by the surrounding support cells by an unknown mechanism. The presence of cloned potassium channel sequences in specific neurons will be ascertained using molecular techniques and nucleic acid sequences complementary to those present in these neurons will be used to block the synthesis of these channels to correlate a particular sequence with a specific potassium current.